Evaluation for the I/UCRC for Health Management Research

This award is for continued support for the I/UCRC for Health Management Research. The evaluator will attend a number of Industrial Advisory Board meetings and make presentations on "Gatekeeping" as a method to improve information flow from Centers back to member companies.